TC:Medium:Collaborative Research:Foundations, Architectures, and Methodologies for Secure and Private Cyber-Physical Vehicles

Modern automobiles are no longer mere mechanical devices; they are pervasively monitored and controlled by dozens of digital computers coordinated via internal vehicular networks and bridged to external networks as well. While this transformation has driven major advancements in efficiency, safety and convenience, it has also introduced a broad range of new potential risks. In this effort, we are evaluating these risks by experimentally mapping the attack surface of the modern automobile, identifying architectural security and privacy vulnerabilities, and developing new defense methodologies that can provide safety within the rubric of the existing automotive design ecosystem.